Documentation and Maintenance of Computer Programs for Computing Long-Wave Runup on a Coastline

This action is part of a coordinated project to document and maintain special-purpose computer codes which can be used to study different aspects of the runup of a tsunami (seismic sea wave) onto a coastline. It involves a collaboration between Professor Philip Liu at Cornell University, and Professors Kobayashi and Grilli at the University of Delaware. Quite a large number of special-purpose computer programs have been developed as part of student doctoral theses. Some of these codes were later found to have wider applicability, and are of interest to other researchers. At the time that they were developed, the substantial investment in effort and time needed to document them for general usage was not made. There is now a growing recognition of this need, but there are no agreed-upon standards for such documentation. This project is intended as a pilot study for documenting and maintaining three existing computer programs. The objective is to develop guidelines for documentation and maintenance of such large computer codes, thereby defining a standard which other code developers can follow. This action is for the work by Professors Kobayashi and Grille at the University of Delaware's Center for Applied Coastal Research. Professor Grilli's code solves the exact two-dimensional nonlinear potential flow equations, for arbitrary bottom geometry, and can be used for short wavelengths (e.g. wind waves) and long wavelengths (e.g. tsunamis). Professor Kobayashi's code calculates the one- dimensional nonlinear long wave runup on an impermeable slope of arbitrary geometry and roughness characteristics.